CAREER: Interaction of Microscale Solidification Fronts with Embedded Particles

This is a very strong proposal in an important field with great potential for impact. Two applications proposed, one to composite materials processing and the other to cryopreservation. The application to cryopreservation is less focused but more exploratory; however, strong collaboration with other investigators in the latter area is noted. May want to consider how to obtain interfacial properties (measured or predicted from microscopic models such as the molecular dynamics method). How to account for asymmetry of dendrites? Two-dimensional modeling may have to evolve to three-D eventually in order to more accurately capture various phenomena.